Lehigh Geometry and Topology Conference

Abstract

Award: DMS-0311913
Principal Investigator: Susan Szczepanski

The Co-PI's of this project will organize and host the next two
occurences (eleventh and twelfth) of the Lehigh Geometry and
Topology Conference. These three day conferences will be held on
the campus of Lehigh University, in Bethlehem Pennsylvania in
June, 2003 and June, 2004. The conferences will be international
in scope with a combined emphasis on the areas of geometry and
topology and will be designed to attract participants at all
stages of careers from a large geographic area.

Prominent researchers will be invited to prepare lectures for the
general audience on a range of topics highlighting significant
recent research developments and their connections to the fields
of geometry and topology as well as the applications of results
in topology and geometry to other areas of mathematics and
science. All attendees will be encouraged to present current
research results and to participate in mathematical discourse.
In particular, special effort will be undertaken to ensure that
this conference will benefit individuals in the early stages of a
career in mathematical research. Financial support will be
provided to undergraduates, graduate students, recent PhD's and
untenured assistant professors, and members of under-represented
groups; the invited speakers will be expected to serve as their
mentors by providing comment and suggesting additional problems
for study.